Nano: Error-Resilient DNA Tiling Assemblies

The self-assembly process for bottom-up construction of nanostructures is of
fundamental importance to the emerging discipline of Nanoscience. For example,
the self-assembly of DNA tile nanostructures into 2D lattices can be used to
manufacture patterned nanostructures from smaller unit nanostructures
components known as DNA tiles on which other molecules such as metallic
particles and proteins can be affixed, and DNA tiling lattices can be used to
perform parallel universal computation. However, self-assemblies at the
molecular scale are prone to a quite high rate of error, ranging from
approximately between 0.5% to 5%, and the key barrier to large-scale
experimental implementation of DNA tiling is this significant error rate in the self-assembly
process. The problem of tiling errors is particularly critical for DNA
lattices that use computational tilings to produce complex patterns, The limitation
and/or elimination of these errors in self-assembly is perhaps the single most
important major challenge to nanostructure self-assembly. The goals of the
proposed research are to develop methods for error-resilient self-assembly; to
analyze these by probabilistic, kinetic analysis and computer simulation; and to
demonstrate these error-resilient self-assembly methods by a series of laboratory
experiments. Research will be done in the context of DNA tiling assemblies. Prior
work by Winfree provided a method to decrease tiling self-assembly errors
without decreasing the intrinsic error rate of assembling a single tile, however, his
technique resulted in a final assembled structure that is four times the size of the
original one. This research team at Duke University has developed compact
error-resilient tiling methods that do not increase the size of the tiling assembly.
They will test their new error-resilient tiling methods that use overlay redundancy
such that a single pad mismatch between a tile and its immediate neighbor forces
one or more further pad mismatches between adjacent tiles in the neighborhood
of this tile. The research will use a combination of theoretical and experimental
methods. Theoretical probabilistic kinetic analysis and empirical studies of the
computer simulation of tilings will first be used to validate these error-resilient
overlay redundancy tiling methods; the analysis will allow prediction of the
reduced error rate and verify the speed of the assembly is not reduced. Following
this, actual experimental demonstrations will be made using DNA tiles, The
overall goal is to demonstrate the feasibility of error-free assemblies of thousands
of tiles.